A Standard Biostratigraphic Sequence for the Devonian of Western North America

Proposed research in the Devonian of the western United States involves three broad areas of endeavor. 1. Brachiopod systematics: especially Siluro-Devonian spiriferid brachiopods at the genus, family, and subordinal levels, their range events, and biogeographical significance, in connection with preparation of the revised edition of the Brachiopod Treatise. 2. Brachiopod and conodont biostratigraphy of the Middle Devonian and conodont biostratigraphy across the Frasnian-Famennian boundary. In these sequences Great Basin depositional history is being investigated with a focus on eustatic events of deepening (Middle Devonian) and platform exposure (Upper Devonian). 3. Investigation of the Upper Devonian faunal sequence, with emphasis on brachiopod-dominated communities and zones integrated with the conodont zonal scheme, will continue to build on published research that has made known the Lower and Middle Devonian sequence.